Travel to Attend: XVII Intrnatl Symposium on High Temperat-ure Heat Exchangers & ICHMT Advanced Course on High Temper- ature Heat Exchangers; Dubrovnik, YO; Aug 19-23 & 26-30,1985

International travel support is being provided to the principal investigator to attend the Seventh International Symposium on High Temperature Heat Exchangers in Yugoslavia. He has been invited to deliver a lecture dealing with thermofluid problems in high temperature heat exchangers. This symposium is an annual event that attracts participation from all over the world.